Nonlinear Stratified Spin-up with Applications to Oceanic Upwelling, Frontogenesis and Subduction

0095971/Rhines

The project addresses two questions associated with the spin-up of
rotating, stratified fluids like the ocean. The first concerns the
effect of nonlinear coupling between the Ekman pumping induced by wind
stress curl and the vorticity of the interior geostrophic flow generated
by the Ekman pumping. The second concerns the generation of convective
and inertial instabilities by the advection of horizontal density
gradients in the Ekman layer by Ekman fluxes, together with the vertical
mixing these instabilities produce. The work consists of the
development and study of analytical and numerical models of
three-dimensional representations of these phenomena together with
experiments to reproduce these phenomena in the laboratory and to test
the theoretical and numerical predictions. Numerical simulations will
be extended to a model of coastal upwelling. The work builds on
two-dimensional theoretical and numerical models of these
processes.